Instrument Acquisition to Analyze Water, Soils, and Biomass for Environmental Research, Monitoring, and Assessment

ABSTRACT

A grant has been awarded to Dr. Alexander Fernald and co-principal
investigators Dr. Laurie Abbott, Dr. April Ulery, and Dr. Clint Loest at New
Mexico State University to acquire major research instrumentation to analyze
water, soils, and biomass for environmental research, monitoring and
assessment. The awarded funds will enable purchase of four research
instruments: 1) a Flow Injection Analysis System with ion chromatograph for analysis of major cations and anions in water, soils, and biomass; 2)a Nitrogen/Carbon
Analyzer for determination of N and C in soils and biomass; 3)a Laser Diffraction Particle Analyzer for measuring particle size distribution of suspended sediment and soils; and 4) an X-Ray Fluorescence Spectrum Analyzer for analysis of metals in liquids, soils, and biosolids. The instrumentation will support research that has the goal of
providing information to: 1) reduce negative environmental effects of land use
practices, and 2) enhance quality of natural resources in New Mexico and the
arid Southwest. Land use impacts on water, soil and biomass threaten
sustainable economic use and ecological health of rangeland, forest,
agriculture, and wildlife in New Mexico. Water quality is a growing concern
with increasing competition for limited water supplies and decreasing
availability of high quality irrigation and drinking water. Rapidly growing
dairies in New Mexico generate large amounts of animal waste, and pollution
from confined animal production threatens water and soil resources. Metal
contamination is a problem in areas of New Mexico with naturally high mineral
occurrence and in areas impacted by mining, military, and agricultural
activities.
As a minority-serving land grant institution, the mission of New Mexico State
University is to conduct meaningful research, to educate and train scientists,
and to extend information to the citizens of the state. The state-of-the-art
instrumentation will provide a leap forward in the ability of university
investigators to conduct needed environmental research and fulfill the mission
to educate. The instrumentation will initially support the research activities
of four investigators, faculty in three departments, and federal researchers.
It will be used to train graduate and undergraduate students in the use of the
instruments as part of their research. Obtaining this equipment will increase
NMSU competitiveness for future grant proposals. The equipment will support
research to provide critical information that will allow agencies, communities,
and individuals to participate in meaningful and sustainable programs that
reduce negative environmental effects of land use practices and that enhance
the quality of water, soil and biomass resources.